Systems with Competing Periodicities: Localization and Fractal Fluctuations

9700808 Satija This grant will support the work of a female theorist who has a research program of international recognition with a strong participation of undergraduate students. The research involves properties of systems with competing length scales. One of the important aspects of these systems is the existence of an exotic phase with fractal characteristics. The conceptual linkage through much of this work is the relationship between localization (and many phenomena related to localization) and the universal Fractal fluctuations. The proposed systems under investigation include quantum chaos models exhibiting dynamical localization and classical driven oscillators with strange non-chaotic attractors. These systems will be studied by using a renormalization methodology developed recently by the PI and her collaborators. The possible applications include a microscopic model of friction and magnetic properties of superlattices exhibiting giant magnetoresistance. %%% This grant supports theoretical research of a female PI. The research on nonlinear dynamical systems involves sophisticated mathematical techniques with active participation by undergraduate and graduate students. It is part of an internationally recognized program with long- standing collaborations with colleagues from around the world. Her work has applications to several currently active areas in materials; including microscopic models of friction and properties of magnetic superlattices. ***